Recursive Bayesian Optical Tomography for Imaging Tissues

A new method of optical tomography is developed for noninvasive photon migration imaging of biological tissues. Major objectives of the project are to adapt methods devised for geophysical applications to optical imaging, investigate the? effects of a priori assumptions on convergence behavior, and extend the resulting methods to three dimensions. The method produces estimates of the number, geometry, value, and covariance of spatially distributed parameters, such as absorption and scattering coefficients, that are correlated with biological structure and function. The new inverse method incorporates Bayesian statistics, unlike other state- of-the-art photon migration imaging methods. An approximate extended Kahman filter is used, in which the inverse of an a priori estimate of the parameter error covariance matrix regularizes the system and the weighting matrix includes the inverse of the measurement error covariance. The efficiency of the extended Kalman filter is improved by approximations that significantly reduce computational requirements without compromising the accuracy of the filter estimates. In addition, the recursive nature of the filter is exploited to keep the size of required matrix inversions low by processing data from separate source-emission events sequentially. Automatic parameterization is alternated with data conditioning to dynamically determine the number and geometry of spatially distributed parameters. The dimensionality of the parameter space is kept high where there are adequate data to warrant high resolution, while the computational efficiency and regularizing effects of low dimensionality are exploited in regions where data are sparser.